III: Small: Automatic Incremental Design for Next-Generation Database Systems

Data management systems are undergoing a sea change. Specialized
engines with specialized physical storage structures are emerging to
address the extreme data volume and performance requirements of modern
applications. At the same time, the complexity of these systems, the
applications in which they are used and the platforms on which they
are built is increasing. Thus, there is a growing need for automatic
database design for these emerging database systems. Unfortunately,
previous work in automatic design cannot be used directly. While the
conceptual framework of previous research is useful, the specifics
must be reworked in order to adequately take advantage of the
opportunities and address the challenges that these new structures
present. Furthermore, most design tools only create complete designs.
There is also a need for automatic designers that can produce a new
design that is sensitive to the cost of migrating an old design to a
new one. Such an incremental designer would often generate a
sub-optimal design if that design will produce 80% of the benefit with
20% of the work.

The PIs propose to investigate this incremental automatic design
paradigm for newly emerging database systems. Specifically, the
project addresses three data management platforms: column stores for
OLAP, main memory, cluster-based systems for OLTP, and an extension to
row stores for exploiting correlations in data attributes.

The PIs expect to extend the work on current design tools by
demonstrating workable incremental designers as described above. There
is a strong need for such tools, and if this research is successful,
it should enable successful deployment of many new-style data
managers. Moreover, incremental design ideas based on sound
cost-benefit analysis are applicable to other data-intensive computing
environments and constitute an important direction towards truly
autonomic computing. Further information on the project can be found
on the project web page: http://database.cs.brown.edu/projects/auto/